SoD: Design of Service-based Software Systems with QoS Monitoring and Adaptation and Adaptation

P0725340

SoD: Design of Service-based Software Systems with QoS Monitoring and Adaptation

Stephen S. Yau (Principal Investigator)
Hessam S. Sarjoughian (Co-Principal Investigator)
Nong Ye (Co-Principal Investigator)

Service-Oriented Architecture (SOA) enables the rapid composition of distributed applications and integration of the "system of systems", and hence is quickly adopted in distributed computing systems. Due to lack of comprehensive understanding of tradeoffs among multiple QoS features associated with service operations in service-based systems (SBS), existing software engineering techniques cannot effectively support the design of SBS satisfying multiple QoS features simultaneously.

The objective of this research is to develop a framework effectively incorporating QoS Monitoring and Adaptation (M/A) capabilities in SBS to handle tradeoffs among four important QoS features (timeliness, throughput, accuracy and security) in the design of SBS. To achieve this objective, research on the design of M/A capabilities in Adaptable SBS
(ASBS) and simulation-based validation of ASBS design will be conducted.
Expected research results include new scientific knowledge about the cause-effect dynamics of activity-state-event-QoS tradeoffs, innovative design support for M/A capabilities, and new simulation principles and methods to support model configurability and scalable simulation of ASBS designs.

These results will not only strengthen the scientific rigor of software design and reduce the gap between software design and system design, but also improve the education in software engineering, advanced information systems, and software modeling and simulation.